Acid-Catalyzed Formation of Ethyl-Butyl Ethers in Near- and Supercritical Water

The world-wide market for methyl tert-butyl ether (MTBE, an octane enhancer) is projected to reach 26 billion pounds per year during the 1990's. A recent ARCO study concludes that ethyl tert-butyl ether (ETBE) is a more desirable fuel additive than MBTE. Conventional technology requires distillation of fermentation ethanol prior to the synthesis of ETBE. One focus of this proposal is the acid-catalyzed synthesis of ETBE in near- or supercritical water, thereby avoiding costly distillation. Because ETBE is insoluble in water, separation of ETBE from the aqueous phase exiting the reactor is facile. A second focus of this proposal is the acid-catalyzed synthesis of a mixture of ethyl butyl ethers (EBE) in near- or supercritical water from fermentation products ethanol and 1-butanol. Mixed EBE's should have fuel properties similar the ETBE, and would be a fully renewable high octane fuel additive. The proposed research emphasizes kinetic studies of the acid-catalyzed mechanism of ether formation in near- and supercritical water using two plug flow reactors. Kinetic models developed during this work will be useful for reactor design and scale-up. This research will also help to clarify the extent to which kinetics can be used to detail mechanism.